Conference: Stem Cell and Developmental Biology: Early Career Symposium

Biomedical science is advancing very quickly, especially in areas such as developmental biology, stem cell research, and cell biology. These fields are becoming increasingly interconnected and are utilizing tools and ideas from many different disciplines to accelerate discovery. Through collaborative research, scientists can better understand how cells behave, how embryos and tissues form, how organs repair themselves, and how diseases develop. This knowledge can support the development of new treatments, improve disease prevention, and lead to better methods for diagnosis. To support this growing field, an in-person symposium will be held in September 2026. The symposium will bring together scientists in a small, intellectually stimulating, interactive setting. Designed for early-career scientists, this meeting will offer opportunities to present research, share cutting-edge tools and approaches, lead discussions, build collaborations, and gain visibility. In addition to scientific sessions, this symposium will include two public outreach activities: a Seattle Science live event on stem cells and developmental biology, and Stem Cell Podcast interviews with speakers and participants. These efforts will help the public learn from experts and engage with current scientific discoveries. Overall, the symposium aims to foster collaboration, develop future scientific leaders, advancing talent in biotechnology and medicine, and engage the broader community by highlighting the importance and benefits of these fields.

The Stem Cell & Developmental Biology Early Career Symposium, organized by the Society for Developmental Biology, the International Society for Stem Cell Research and the Allen Institute, aims to catalyze scientific exchange and professional development in the rapidly converging fields of stem cell and developmental biology. By integrating developmental principles with stem cell, organoid, and reprogramming technologies, these fields offer accelerated and new opportunities to study development, tissue regeneration, and human disease. The in-person symposium, to be held at the Allen Institute in Seattle, will bring together 150 early career scientists in an intimate, interactive setting, that emphasizes both scientific excellence and career development. Unlike traditional early-career meetings, the symposium is intentionally designed to involve early career scientists in planning the program, shaping scientific content, and designing workshops. Senior investigators and society leaders will assist throughout the symposium by providing perspective and mentorship. Their role will be to support early-career scientists without overshadowing them. Scientific sessions will focus on four cross-disciplinary themes: Data Analysis Across Scales, Model Systems and the Organism, Spatial Awareness, and Cell Fates and Traits. The success of the meeting will be evaluated through carefully designed surveys that assess whether the symposium met participants’ needs, identify areas for improvement, and measure its impact on interactions, intellectual exchange, and future collaborations. By intentionally supporting the success of early-career scientists, the symposium will help strengthen the future of biomedical science in the United States. This symposium advances NSF’s priorities in Biotechnology and Artificial Intelligence.